Analytical and Numerical Studies of Diffusion Equation in Multidimensional Heterogeneous Bodies

The proposed method for the solution of steady-state and transient temperature distributions in three-dimensional heterogeneous bodies uses a Galerkin-based integral solution incorporating heat-flux-conserving (HFC) basis functions and Green's function solutions. These basis functions exactly satisfy the boundary conditions along the boundary of inclusions; hence, eliminating the tedious task of numerically matching the heat flux and temperature jump at the boundary of the inclusion. A Galerkin solution using the HFC basis functions is a powerful tool to accommodate parabolic and elliptic partial differential equations in complex heterogeneous boundary conditions. The Green's function solution method is used to deal with nonhomogeneous boundary conditions and to obtain patched solutions for complex, three-dimensional bodies. This solution method has many applications to advanced technologies. For example, one of the challenges faced by engineers is electronic cooling where the removal of an immense amount of heat from very small electronic devices is essential to prevent overheating which can result in device failure. These small electronic devices are comprised of many layers with many inclusions and can be classified as heterogeneous bodies. This solution method can be extended to other areas of research such as the curing of composite materials used in the aerospace industry, to evaluate the load carrying capability of composite materials, and to bio-engineering research.